CHAI - Strengthening Cyber Infrastructure for Enhanced STEM Education and Research at TMC

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering and mathematics (STEM) instructional and research capacities of specific institutions of higher education that serve the Nation's indigenous students. Expanding the instructional, research, and development capacity at these institutions expands the opportunities for students to pursue challenging, rewarding careers in STEM fields, provides for research studies in areas that may be locally relevant, and encourages a faculty community to look beyond the traditional classroom for intellectual and professional growth. This project aligns directly with that goal by strengthening the STEM cyberinfrastructure at Turtle Mountain College (TMC) for instructional and research activities. The project aims to enhance cyberinfrastructure and cybersecurity necessary to facilitate development of the institution in STEM fields and for the protection of sensitive data.

This project will future-proof the institution's digital infrastructure by upgrading its physical network backbone to improve the resiliency and security of STEM operations, data management, teaching, and research enterprises. Improvements to TMC's network and cybersecurity advance the college's ability to implement future STEM curricular advances and address concerns associated with remote access. The design eliminates physical latency for data-intensive, multi-disciplinary workflows, safeguards the data integrity of high-precision laboratory experiments, and contributes valuable empirical data to the broader field of academic network design. Students will benefit from increased access to online resources and virtual courses. STEM engagement activities in language and biological sciences, among others, are aided and enabled by advances in cyberinfrastructure at the institution.